EPSCoR Research Fellows: @NASA: Constraining the role for earth system model uncertainty in glacier model projections

This Research Infrastructure Improvement (RII) EPSCoR Research Fellows project provides a fellowship to an Assistant Professor and training for a graduate student at the University of Hawaiʻi at Mānoa. This work is conducted with collaborators at the NASA Goddard Space Flight Center. Through the fellowship, the PI and primary collaborator will develop a program to conduct multi-disciplinary earth sciences research while providing graduate and undergraduate training in team-based remote-work best practices. The resulting research will robustly quantify uncertainty in future glacial runoff, motivated by the critical role that glacial runoff plays in buffering downstream communities against drought. The results of this award can be used to inform efforts to mitigate the socioeconomic effects of earth processes while expanding the STEM workforce.

Quantifying future water availability in glaciated river basins requires a multi-disciplinary “model chain” that includes earth system models and large-scale glacier evolution models. This proposal connects an earth system model and drought-focused faculty member with a large-scale glacier evolution model and drought-focused NASA primary research collaborator to improve these model chains. Together they will pursue a research program with two primary objectives: 1) to produce basin scale glacial runoff projections through the 21st century with explicitly quantified uncertainties; and 2) to train a next generation of STEM leaders that can secure employment in Hawaii. Faculty professional advancement will include critical knowledge transfer of glaciology and associated modeling, as well as in innovative undergraduate education approaches for training and retaining future leaders in government, academia, and industry.

This project is supported by the EPSCoR Research Infrastructure Improvement Program: EPSCoR Research Fellows (ERF). The ERF program supports early- and mid-career investigators in eligible jurisdictions to develop collaborations at the nation’s private, government or academic research institutions.